Workshop on "Standardized Coding of Virus Characteristics;" Rockville, Maryland: March 1990

Identification of a virus is a two step process, requiring collecting information about a set of characteristics of the unknown and then comparing that set to data stored on known viruses. The process of comparison is eased if different laboratories use well-standardized descriptors and can readily compare their values to reference data sets. Several different approaches have already been developed to meet these needs. Now is an opportune time to evaluate each of these and determine the feasibility and utility of coordinating the development of an interdisciplinary standard for coding descriptors. Because of its commitment to maintaining information on diverse viruses, the American Type Culture Collection (ATCC) will promote interaction among professionals interested in this effort by hosting an exploratory two-day workshop including representatives of several virology societies, nomenclature groups, and knowledge base developers. This meeting will serve to evaluate current projects, suggest solutions, and enlist the support of scientific societies. The report of this meeting will: 1) evaluate the need for standardization; 2) identify the participants who would be represented in any such effort and 3) serve as one basis for evaluation of future funding by granting agencies.